Economic Opportunities, Social Change and Fertility Transition in the Eastern Caribbean

This project examines the causes for variations in population growth between different societies in the Caribbean. Households in Santa Lucia and Antigua will be surveyed to study the reasons for high and low family sizes,using a survey questionnaire that has been used to study similar issues in Barbados. The hypothesis tested is that women have fewer children when they are freed from financial dependence on their children in their old age, and that this independence comes from changes in the educational sytem and occupational structure. This research is important because understanding the causes of high population growth will help us to control it; and the general theory of the changes from high to low population growth must be tested against local circumstances to discover its strengths and weaknesses. The islands of the Caribbean represent a natural laboratory of similar but different societies in which to test the theory.